Technician Support: Electron Microprobe Facility, Phase II

9627336 Steele This grant provides $46,295 as 20% support of salary, fringe and associated overhead for a technician at the electron microprobe (EMP) lab at the University of Chicago for the next two years. This is a Phase II technician support proposal under the EAR/IF program guidelines. NSF support of this position will allow this lab to continue to act as a regional facility for major elemental analysis of igneous, metamorphic and planetary samples. ***